Low Dimensional Magnetic and Electronic Systems

There is much recent interest in the condensed matter physics of low dimensional magnetic and electronic systems. Sheets and/or chains of magnetic ions may play a key role in high temperature superconductivity, as may quasi-one-dimensional systems described by the Hubbard model. Models of single magnetic impurities, such as the Kondo and Anderson models, form the basis for understanding heavy electron systems. On the other hand, there have been significant recent advances in understanding and applying Bethe Ansatz techniques to one-dimensional integrable systems. Some of these models are excellent representations of the quasi-one-dimensional systems mentioned above. This research will apply Bethe Ansatz techniques to one-dimensional magnetic and electronic systems, as well as to understanding the sine- Gordon model.